Polyhedral Approximation and Other Computational Aspects of Geometric Problems

The investigator and his colleague study computational
aspects of various geometric problems in two directions: (1)
Design and implementation of efficient algorithms for the
approximation of various convex and nonconvex objects in
multidimensional space by polytopes, and research of the
computational complexity as well as practical efficiency of these
algorithms. (2) Application of high performance computing as a
tool to solve or advance toward a solution of open theoretical
problems in convex geometry, among them, Kneser's problem
concerning the relationship between volumes of intersections or
unions of balls in multidimensional Euclidean space and their
mutual distances. Because of its practical importance in many
application areas, the approximation of both convex and nonconvex
polytopes by "simpler" polytopes is given special attention, and
fully constructive solutions are developed for these cases.
Extensions and variants such as approximation under various
metrics, requiring the approximating object to enclose or be
contained within the approximated object, and finding minimal
enclosing polytopes of a specific type (like parallelotopes, for
example), are also considered. Some of these variants find
important applications in mobile computing and multidimensional
databases.
The investigators develop efficient computational solutions
for the problem of approximating multidimensional bodies by
polytopes (solids formed by flat faces) of a prescribed size.
Such approximation is an important tool in many disciplines,
including molecular modeling, optimal control, computer-aided
design, and computer visualization. They also investigate the
problem of enclosing and approximating multidimensional bodies by
polytopes of a prescribed type, such as "boxes" (parallelotopes),
for example. Solutions to these problems find important
applications in the rapidly growing areas of mobile computing and
multidimensional databases. Furthermore, due to their simplicity,
polytopes are by far the most widely used form of model
representation. Thus, the work is also important because it
facilitates the use of the large body of methods already
available for polytopes, provided that the resulting
approximation is good and can be performed efficiently.
Development of these algorithms produces tools of high
performance computing. The investigators use these tools in turn
to study long-standing geometric problems.